L-functions of Several Complex Variables and Automorphic Forms

The research of Imamoglu focuses on the analytic theory of L-series
of several complex variables. The PI and her collaborators have
recently defined Rankin-Selberg Dirichlet series of several complex
variables attached to Siegel cusp forms. She proposes to exploit the
analytic properties of these series to establish non-vanishing
results for special values of Rankin-Selberg convolutions of
Fourier_Jacobi coefficients of Siegel forms and to improve bounds for
their classical Fourier coefficients. She also proposes to investigate
a possible generalization of the classical Dedekind zeta function of
a number field to a zeta function of several complex variables.

The investigations of this proposal belong to number theory, which is
a branch of mathematics that deals with problems involving whole
numbers. Mathematicians have discovered that many of the important
properties of whole numbers can be encoded into certain objects
called "L-functions". These L-functions have their origin in the
study of calculus but our understanding of their fundamental
properties are far from complete. The PI and her collaborators
proposes to investigate the analytic properties of these functions to
fill in some of the gaps in our knowledge.